Purchases of Variable Field NMR Spectrometer

This award from the Chemistry Research Instrumentation and Facilities Program will assist the Department of Chemistry at the University of Wisconsin at Madison with the purchase of a nuclear magnetic resonance (NMR) spectrometer. This new instrumentation will enhance greatly research in a number of areas including the following: physical chemistry, polymer dynamics, catalysis, and biophysical chemistry. A nuclear magnetic resonance (NMR) spectrometer is used to obtain information about molecular structure (what types of carbon and/or hydrogen atoms and/or hetero-atoms are present, what are the relative number of each type of atoms and how are they connected to one another in the molecule) and molecular dynamics (how rapidly are the various parts of the molecule moving). This instrument is essential for any meaningful, modern synthetic chemistry research program.